Conference on Advances in Communication and Control Systems to be Held October 19-21, in Baton Rouge, Louisiana

An International Conference on "Advances in Communication and Control Systems" is scheduled to be held October 19-21, 1988, in Baton Rouge, Louisiana. The Conference theme is the reunification of Communication and Control Theories. Prominent investigators in both areas will participate in the Conference, which will high-light emerging theories and technologies in the twin-areas. The response of the scientific community to this idea is best illustrated by the number of eminent engineers that are members of the organizing and program committees.